Multi-Functional Activities of a Group I Intron-encoded Protein

The objective of this project is to understand the relationship between two activities of a
protein encoded by a group I intron. The protein facilitates a splicing reaction that excises the
intron from its precursor RNA and also acts as a DNA endonuclease, cleaving DNA at a specific
sequence. It is commonly believed that the RNA splicing activity evolved from a protein that
originally functioned solely as a DNA endonuclease. However it is unlikely that this new
function arose simply by fusion of an additional gene sequence. Preliminary evidence indicates
that the DNA and RNA substrates bind to distinct or partially overlapping sites on the protein.
The question then arises as to how a protein acquires a new function and how easily this can be
detected. This is particularly relevant to annotating genomes. Attributing a single function to a
gene may constitute only partial characterization of the sequence since an unknown number of
proteins may "moonlight" and perform a second, unrelated and unforeseen task. Group I introns
can catalyze their own excision from RNA precursors. An intron-encoded protein, called a
maturase, significantly facilitates removal of such an intron in Aspergillus nidulans. It also has
DNA endonuclease activity. The three-dimensional structure of the protein has been obtained
with the help of a collaborator and the region which binds the cleavable DNA sequence has been
identified. Guided by this model, the relationship between the binding sites of the RNA and
DNA substrates will be studied biochemically and genetically. Current diffraction data from
crystals of group I introns are of insufficient quality to reveal structural details at the atomic
level. Co-crystallizing RNA with a protein can often solve this problem. A collaboration will be
performed to obtain a high-resolution structure of the intron-maturase complex. This will not
only reveal the RNA binding site on the protein and help to determine how the RNA binding site
arose, but also provide a wealth of structural information about the group I intron RNA itself.